Role of Fungi in Sphagnum Peat Treatment of Wastewater

This is a recommendation for renewal of support of research on the roles of fungi and oligochaetes in the removal of pollutants from wastewater as it passes through organic humus. Prior work conducted under NSF Grant No. CEE-8312184 characterized the fungi, oligochaetes and bacteria found in a sphagnum peat onsite wastewater treatment system that has been in successful operation since 1978. These investigators found that between 60 and 80 percent of the total respiratory activity within the moss was attributable to fungi. Isolates from this prior work will be used to inoculate a new peat-based treatment system which will be compared with a control to determine the effects of selective inoculation on the efficiency of the process and lagtime associated with the placement of these systems into service. On-site wastewater systems continue to provide a solution to wastewater management for a large fraction of the Nation's population. Their failure to operate acceptably after relatively short periods of satisfactory service is well-documented. NSF supported the 1983 workshop at Colorado State University on soil absorption of wastewater that identified research needed to improve the engineering design of soil leaching systems. This project has the potential of improving our understanding of how passage through soil removes contaminants from wastewater and thus lead to better design and operation of these systems. The objectives of this project are consistent with those of the Environmental Engineering Program and the qualifications of the investigators are appropriate for the work to be done. Award is recommended as a 24-month Continuing Grant, the initial increment of which is in the amount of $69,411 for 12 months starting on February 1, 1987.